Criteria for Establishing the Relative Timing of Pluton Emplacement and Regional Deformations

This action provides partial travel support for keynote speakers invited to a Penrose Conference entitled "Criteria for Establishing the Relative Timing of Pluton Emplacement and Regional Deformations", to be held September 10-15, 1988 in Oakhurst, California.